Time-domain Light-scattering Spectroscopy of Condensed Materials

This proposal is aimed at providing a comprehensive experimental study of condensed phase dynamical processes using femtosecond to microsecond time resolved spectroscopic techniques. Phase transitions and intermolecular or interionic vibrational motions will be studied in liquids at various temperatures and pressures to elucidate the nature of liquid state molecular motion, the extent of inhomogeneity in simple liquids, and the persistence of local liquid structure.